Beyond the Double Bind: Women of Color in Science, Technology, Engineering, and Mathematics

This research extends the investigator's prior NSF supported work to develop theoretical and empirical understanding of the double bind faced by women of color in STEM fields. That is, their race and gender present dual dilemmas as they move through STEM educational and career paths. The proposed study will identify gaps in our understanding, and identify some of the methodological problems associated with answering outstanding questions about the double bind. The major research question is: What strategies work to enable women of color to achieve higher levels of advancement in STEM academia and professions? The goal is to bring a clearer understanding of the issues which confront women of color as they pursue study of science and engineering, and what factors influence whether they leave or remain in STEM.

The work will employ a highly structured narrative analysis process to identify and quantify factors that have been successful in broadening the participation of minority women in STEM. The research design involves two separate tracks of work: 1) to conduct narrative analysis of primary documents associated with women of color in science; and 2) to conduct site visits and interviews to understand features of programs associated with successful support of women of color in undergraduate and graduate education. The first part is designed to inform the second, with the narrative analysis helping to identify features to look for in site visits and to use in development of interview protocols.

This research will focus on individual and programmatic factors that sustain women of color as they confront barriers to their career goals. It examines institutional strategies and support structures that help women of color ultimately to succeed, and social and pedagogic elements that influence their educational experiences. Although women of color have made some progress over the last three decades towards more equitable participation in STEM fields, the major efforts made to address this issue have not produced the desired outcomes; minority women continue to be underrepresented relative to white women and non-minority men. The factors that account for continued lower participation rates are not yet fully understood.

Beyond the Double Bind is designed to transform the intellectual basis for building future programs that will better enable women of color to be successful in STEM. While focused on women of color, the results will ultimately inform strategies and programs to expand the presence of all women and minorities in STEM.